National Forum on Critical Issues in Marine Technology Education

ABSTRACT 9602384 Crane Monterey Peninsula Community College will host a National Forum on Critical Issues in Marine Technology Education . It will bring together stakeholders from the academic research, education and employment sectors. The focus areas of the conference include:(a) needs for technician in marine, oceanographic and coastal fields; (b) job descriptions of what technicians in these areas can best do; (c) programs and curricula which currently exist on which these programs can build; (d) common an distinct elements for coastal, marine and oceanographic technician; (e) involvement of employers in curriculum development, faculty and student development, and research; and (f) what education these technicians need and who should provide it.